Cell and Molecular Biology Student Research Laboratory

The goal of this proposal is to expand and enhance a laboratory course in cell and molecular biology by providing opportunities for students to participate in semester-length research projects to study the storage, processing, and transfer of genetic information in biological systems. An ultracentrifuge, phase-contrast microscope, UV spectrophotometer, and electrophoretic apparatus are requested to conduct experiments involving plasmid DNA isolation, DNA cloning, and